Discovery Corps Postdoctoral Fellowship: Greener Approaches to Chemistry Through Research and Education

Stephanie Gould is integrating research and K-12 outreach with this Discovery Corps Postdoctoral Fellowship. Her research component involves synthesizing complex molecules that will be used in the development of a new class of molecular machines. These machines will respond collectively to mechanical, electrical, magnetic or optical stimuli. The study will also contribute to "green chemistry", or chemistry with reduced environmental impact. The science education and outreach components, in partnership with a NSF-funded GK-12 Program, will develop inquiry- and active-learning modules for high-school teachers and students. Gould will work with classroom teachers in the Los Angeles Unified School District.

This award is cofunded by the Division of Chemistry and the Office of Multidisciplinary Activities. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.